Mathematical Sciences: Bounded Influence, High Efficiency, High Breakdown Estimation and Testing Procedures

Inferential procedures will be developed for the problem of subhypothesis testing in a linear model. The procedures will be characterized by (i) local stability, i.e. their influence function will be bounded, (ii) global stability, i.e. their breakdown point and breakdown slopes will be nonzero, and (iii) improved efficiency over existing robust procedures. Testing procedures based on estimators that are more efficient than the Krasker-Welsch will be developed and investigated. The test procedures will be characterized according to their geometrical properties and the possibility of constructing confidence intervals will be explored.